Enhanced Learning through Better Data Access and Utilization

Kean College of New Jersey is seeking support to replace the departmental's server and to purchase a portable classroom projection system to bring Unidata products directly into the classroom. The present server is inadequate and has become unreliable to fulfill the demands requested by faculty and students. With the new equipment, Kean will provide an opportunity for students to enhance their learning experience in and out of the classroom. In addition, faculty and students will be able to share data and information with the Unidata community and surrounding K-12 institutions.